Remodeling University Physics

Physics (13) The project is developing a University Physics course organized around models and modeling to make the subject matter and procedural knowledge more explicit, systematic and coherent. Two unifying themes run throughout the course: (1) structure of matter and (2) energy storage and transfer. The instructional method employed is a variant of the modeling method that has been so successful in high school physics. Students work in collaborative groups in a technology-rich classroom. Student learning, as measured by standard instruments, is considerably greater than under traditional instruction. This project is adapting the modeling approach to a large technology-rich studio classroom, and developing workshops for faculty for wide dissemination.